A Novel Cooling Device

Conventional refrigeration systems are limited in several respects: neither vapor compression nor absorption coolers are efficient in small-scale units, and most vapor compression systems use freons (CFC's) that are harmful to the environment. Thermoelectric cooler have been used in a small scale, applications, but also suffer from low efficiency. A cooling device which offers higher efficiency in a small scale unit, and which avoids the use of CFC's, would be highly desirable. To meet these criteria, TDA plans to look at a novel cooling device using coupled electrochemical oxidation and reduction. After carrying out detailed thermodynamic calculations to define the system and the desired characteristics of the coupled reactions, they have identified a number of promising reaction sets. However, detailed data on many of the desirable chemical systems are not available. Accordingly, the objectives of the research are (1) to carry out measurements of the fundamental electrochemical parameters of redox couples that are potentially useful in such a process, and (2) to conduct a systems analysis to determine the performance of a device based on these reactions. Theoretically, the electrochemical cycle operates at the same Coefficient of Performance (COP) as a Carnot refrigerator; however, real equipment considerations will limit performance to about 40% of the Carnot limit. The refrigerator has potential for several applications, including replacement of refrigerators with CFC's and small scale cooling such as a chiller for electronic components. In Phase II they will construct and test a prototype cooling device using this approach.